Transatlantic Collaborative Planning Travel for the Power Grid

The purpose of this travel supplement is to develop a plan for a new research partnership between GridStat and INSPIRE. The proposal is to support two trips. The purpose of the proposed visits is to form a collaborative research between the PI and participants in the INSPIRE (INcreasing Security and Protection through Infrastructure Resilience), a Collaborative Project, co-funded by the European Commission, which focuses on SCADA systems.